Molecular Dynamics, Structure, and Phase Transitions in Liquid-Crystalline Media: Electron-Spin Resonance (ESR) Studies

Studies on the dynamic molecular structure of liquid crystals utilizing modern electron-spin resonance (ESR) techniques. Further studies are planned on molecular reorientational motions including both local and long-range cooperativity. Studies at a molecular level of the dynamics of the liquid crystalline phase transitions utilizing observed critical types of divergences of the spin-relaxation are to be continued. The studies are performed with spin probes of varying size and shape. New Two- Dimensional Fourier Transform ESR methods will be used to obtain more accurate and detailed relaxation data from which to infer both the long-time and short-time molecular motions. Two- dimensional electron-spin-echoes and new high-field ESR methods will enable the study of slow-motional behavior of larger probes in lower temperature phases in terms of their ordering, configuration, and dynamics. The description of molecular motions in liquid crystals will be enhanced by studies of translational diffusion of the probes both at the molecular level (by spin-exchange) and at the macroscopic level (by ESR- imaging). Special emphasis is to be placed upon interpreting results at nematic-smectic phase transitions and within smectic phases in terms of coupled rotational and translational molecular motions, Our powerful computational methods will permit more sophisticated modeling of the motional dynamics as required to interpret these results. These studies will include thermotropics, oriented lyotropic nematics, and oriented polymeric liquid crystals.